Scholarships for Mechanical Engineering Faculty to Attend Bioprocessing Courses

The ASME's Bioprocess Engineering Program is presenting two advanced courses concerning the manufacture of biopharmaceuticals: Process Equipment Technology Process Equipment Design at the University of Virginia during the week of 25 September 1989. The audience will be process-development, manufacturing-facility, and equipment engineers. Fifty students are expected for each 3 day course. Most of the US biotechnology industry is employing labor intensive and costly manufacturing methods. The objective of the ASME's bioprocessing program is to help the industry develop continuous, instrumented and automated production methods which can make its therapeutic and veterinary proteins competitive in world markets. There now is a severe shortage of properly trained engineers for commercial-production scale- up. The scholarships requested here are for ME faculty to attend the ASME courses for indoctrination in bioprocessing equipment technology and design. They will thus be better prepared to initiate curricula at their institutions to produce qualified equipment engineers for the US biotechnology industry.